Alexandrov's Geometry and Applications

Abstract DMS-0103957:

The project contains the following main topics:
1. Approximation of Riemannian
manifolds by polyhedral metrics and generalization of Alexandrov embedding
theorem. The PI has proved that approximability by polyhedral metrics
implies a new kind of curvature bound which appears naturally but has never been
considered in geometry before. The proof is interesting in its own right,
as it uses a Lemma closely resembling the Alexandrov embedding theorem
(which states that any positively curved metric on a 2-sphere is isometric
to a convex surface in a Euclidean space). This brings us back to a more
geometrical point of view on Riemannian Geometry, according to which
``interesting'' curvature bounds should arise from properties of
embeddings of manifolds into Euclidean space. This circle of ideas also
gives a new approach to the old conjecture that every simply connected
Riemannian manifold with positive curvature operator is diffeomorphic to a
sphere;
2. Collapsing with lower curvature bound. The general goal of this topic
is to understand how collapsing with lower curvature and diameter bounds
happens and, in the very best case, to construct a structure analogous to
the one obtained by Cheeger-Fukaya-Gromov for the case of bounded
curvature.
3. Gate spaces. Gate spaces are related to a circle of problems arising
from the question of K.Grove of whether there is an Alexandrov space that
has two different smoothings into Riemannian manifolds of the same
dimension and lower curvature bound;
4. Applications of megafolds to collapsing with bounded curvature and to
Ricci flow. Megafolds are a generalization of Riemannian manifolds and
orbifolds that has already proved it usefulness for collapsing with
bounded curvature; in particular, they were used by the PI to prove, in
coloboration with W.Tuschmann, the main part of the Klingenberg-Sakai
Conjecture. Such a collapsing also arises naturally from the rescaling of
the Ricci flow; it can be used to construct singularity models for the
Ricci flow with no injectivity radius estimates;
5. Theory of Alexandrov spaces. Alexandrov spaces appear naturally as
limits of Riemannian manifolds with lower curvature bound. Most geometric
results which are true for Riemaninan manifolds with lower curvature bound
are also true for Alexandrov spaces; however, there are several such
results that cannot be generalized. For example, it is not known whether a
convex hypersurface in an Alexandrov space is also an Alexandrov
space. Such problems are mostly due to the lack of local analysis, and
that is what the PI proposes to study.

Riemannian manifold, which could be considered as a simplified version of
space-time, is a way too complicated object. The first topic in this
proposal is aimed at studing Riemanian manifolds by means of approximation
by simpler objects. These objects are polyhedral spaces, i.e. spaces glued
of Euclidean polyhedra. The other topics considers a different approach to
studing Riemannian manifolds. It is based on considering extremal metrics,
in an appropriate sense, for example how Riemannian manifolds collapse to
lower dimenssional objects. This method makes possible to get new results
in the main stream direction of Riemannian geometry: how to make
conclusions about global structure of space basing on local properties.